NeTS-WN: Wireless Network Health: Real-time Diagnosis, Adaptation, and Management

Recent Internet expansion, at least in terms of geographical coverage, has largely occurred using wireless technology. The goal of this research grant is to enable the deployment of service-capable and responsive wireless-based networks through real-time network diagnosis and dynamic adaptation.

Only through an integration of real-time measurement and analysis (localized, autonomous adaptation by network devices, and management though visualization and interactive analysis) can wireless networks achieve long-term utility and stability while also providing support for increasingly complex services.

The research in this project is divided into five areas: dynamic monitoring, which includes work to improve the accuracy of monitored data as well as the real-time capability to perform targeted high-fidelity monitoring; network health diagnosis, which attempts to determine the real-time operational status of a variety of metrics; dynamic provisioning, which uses status information to adjust network operation and protocol parameters in order to improve performance; interactive visualization, which attempts to aid network understanding through interactive and scalable display techniques; and finally, management and planning, which takes a longer-term view of wireless network operations and focuses on capabilities like additional resource placement. These projects provide intellectual merit through new designs for wireless networks, work to develop a clear set of design solutions, investigation of possible alternatives within each set, and evaluation of proposed solutions.

The research will have a broad impact on research, industry, society, and education. It will offer new directions in research, impact wireless network design and deployment, and improve the robustness of wireless network deployments.